POSE: Phase I: Building a Sustainable Open-Source Ecosystem for the Plant Breeding Application Programming Interface (BrAPI)

One important way to alleviate food security issues in the U.S. and the world is to breed more nutritious and more resilient food crops. Modern breeding methods rely on large amounts of phenotypic and genomic data collected across years and environmental conditions. This requirement presents challenges in effective data management and integration. With recent advances in automation and genotyping methods, the size and complexity of datasets have increased significantly, often resulting in data being stored across multiple systems. Translating this data into superior plant breeding selections increasingly requires the aggregation of datasets from diverse sources, and data exchange between disparate systems becomes a challenge. The Plant Breeding Application Programming Interface (BrAPI) was built to simplify this data exchange, allowing tools to work together seamlessly and allowing scientists and breeders to focus on science rather than data management or software development. This project seeks to create a sustainable open digital ecosystem with a shared digital standard that enables software developers, plant breeders, and researchers to access and exchange data more efficiently. The project will build the necessary structure to steward digital standards and help users keep pace with rapid advances in agricultural technology and access integrated research datasets. It advances the national interest by strengthening the data infrastructure needed to develop crops that can meet long term food and crop production demands.

This Pathways to Enable Open-Source Ecosystems (POSE) project develops comprehensive market research to understand how plant breeders and software developers currently use the data exchange standard, BrAPI, and identifies the improvements needed. These findings inform the development of a business plan and a sustainable long term funding model. The project team will lay the legal and financial groundwork for creating a nonprofit organization that can steward the BrAPI standard and strengthen the broader open ecosystem. A dedicated manager will oversee technical development, coordinate community input, and ensure the BrAPI specification evolves with emerging analytical tools. Together, these efforts will establish the foundation for an OSE capable of adapting as breeding technologies and data models continue to advance.